Mechanistic Studies on Transmembrane Proton Transport

This interdisciplinary Chemistry of Life Processes (COLP) project draws upon both synthetic organic chemistry and biophysics to investigate the mechanism of transmembrane proton transport. In a synergistic collaborative effort, David S. Cafiso and Glenn J. Garvey of the Chemistry Department and Mark S. Braiman of the Biochemistry Department of the University of Virginia will synthesize well-defined molecular arrays of both hydrocarbon- and peptide-based materials, characterize them, and incorporate them into model biomembranes to determine the role of hydrogen-bonded networks on transmembrane proton conduction. This research draws upon demanding synthetic chemistry, careful structural biology and chemistry, and state-of-the-art spectroscopy to address a question of fundamental importance in biological membrane science. This activity affords a strong interdisciplinary learning environment for graduate students and postdoctoral fellows. The results of this collaborative effort could impact broadly in both the chemical and biological sciences.